A Next-Generation Infrastructure for Integrating Computing and Communications

9401156 Ferrari This award provides support for the development of Titan, a computing system consisting of an integrated ensemble of computing and communication elements, organized to provide the user with a number of services. These services will include multimedia capabilities in delivery vehicles; storage and communication; large computing power; large storage space; innovative parallel languages, debuggers, and libraries; and high accessibility from both mobile and fixed locations. The experimental facilities requested include workstations and servers constituting the backbone of the distributed system providing cycles to the user, ATM switches for linking workstations and servers, a video editing system, a massive storage unit, and equipment for linking the network to the currently available CM-5 parallel computer. The proposed research projects fall into three areas: network and communications; distributed supercomputer projects which are mainly concerned with providing parallel computing to every user through a combined architecture, operating systems, and programming language effort; and multimedia services which requires integrating systems support, software support, and artificial intelligence tools to create, store, play, edit, search, input, and output multimedia objects. The networking, multimedia, and computing aspects of Titan form will form the infrastructure for a number of computationally intensive applications.